Collaborative Research in Computational Neuroscience (CRCNS) PI Meeting held on June 3-5, 2007 in College Park, Maryland

The PIs and Co-PIs of grants supported through the NSF-NIH Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This will be the third meeting of CRCNS investigators. The meeting brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks and plenary lectures. The meeting is scheduled for June 3-5, 2007 and will be held in College Park, MD.